Develop State and National Indicators of Science-Math Education and Analyze Trends

9353142 Blank This project will continue to develop and analyze indicators for mathematics and science education. Particular emphasis will be placed on developing new indicators of Opportunity to Learn, Teacher Professional Development, and Cities/urban education. There will also be state-by-state analyses of the condition of mathematics and science education and a special effort reviewing curriculum frameworks in all states.